Biophotonics: Electrochemiluminescence at Microelectrodes During PCR Amplification of DNA

0086863
Smith
This project investigates a new technique for in situ quantification of Polymerase Chain Reaction (PCR) amplification products using electrochemiluminescence (ECL). The technique implements the highly sensitive, ECL detection and quantification of tris(2,2'bipyridyl) ruthenium (II) labeled DNA. This method is expected to yield significant improvement in speed, cost and performance over existing quantitative PCR methods, by reducing the number and quantity of reagents, reducing the number of sample preparation steps, increasing sensitivity, and shortening analysis time.